International Research Fellowship Program: Geotechnical Engineering - Efficient Design of Deep Foundations in Cemented Soils

0107341
DeJong

The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twenty-four months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad.

This award will support a six-month postdoctoral research fellowship by Dr. Jason T. DeJong to work with Dr. Mark Randolph at the University of Western Australia in Nedlands, West Australia.

Deep foundations are being constructed at an ever increasing rate in regions with cemented sand deposits throughout the world. However, current empirical design methods perform inadequately, and thus advances must be made to improve design performance. Before advanced computer modeling methods can be properly implemented, the mechanisms governing deep foundation behavior must be understood and incorporated into models. This project will investigate these mechanisms and provide a preliminary framework for modeling deep foundations in cemented soils.

The University of Western Australia is one of the premier institutions in the design of deep foundations. The host is a leading authority in the field of deep foundations.